Web Projects for Plasma Science, Engineering, and Education

The current award is to enhance the capabilities of the web site entitled the Plasma Page at plasmas.org. This site has reliably served the plasma science and engineering community worldwide. These enhancements will include adding an internal search engine, comprehensively checking and extending link listings and descriptions in all categories of plasma science and engineering, and revising and updating content and graphics to better represent research and education programs and opportunities in the plasma sciences.